4th Mississippi State Conference on Differential Equations and Computational Simulations at Starkville, Mississippi on May 21-22, 1999

The NSF award will be used mainly to provide
travel support for participation of graduate students and
recent Ph.D.'s in the Fourth Mississippi State Conference
on Differential Equation and Computational Simulations.
The conference will take place on May 21 - 22, 1999
in Starkville, Mississippi. A number of well-known experts
will present invited principal lectures at the conference.
In addition, there will be sessions of contributed talks.
A collection of refereed papers from the conference will
be published as a special issue of the Electronic Journal
of Differential Equations.

The conference is organized jointly by the Department of Mathematics
and Statistics, and the NSF Engineering Research Center at
Mississippi State University. An overall goal of the conference is
to promote research and education in mathematical and computational
analysis of mathematical models that use differential equations.
The conference will provide a forum where mathematicians, scientists
and engineers from industries, federal laboratories and academia
exchange research and development ideas. This interaction between
mathematicians and engineers will be a unique feature of the conference